Post Critical Heat Flux Heat Transfer

Boiling heat transfer is of great importance in many technologies, especially in power generation. Boiling heat transfer is also the least understood area in the field of heat transfer. This effort will focus on developing an understanding of this area.